Bridge to Research in Marine Sciences: A Summer REU Program in Savannah, Georgia

Savannah State University in Savannah, Georgia hosts an 8-week, 10-student summer Research Experience for Undergraduates (REU) program in marine sciences. The goal of this REU program is the early recruitment and support of undergraduate students in the STEM pipeline. This program is developed around a multidisciplinary, collaboration between academic and governmental partners in the Savannah, Georgia area. Savannah State University's local partners include the Skidaway Institute of Oceanography, UGA MAREX Aquarium and Gray's Reef National Marine Sanctuary. Each has experienced research mentors and high level research facilities that provide an excellent environment for student research projects. Students receive a combination of classroom instruction, career guidance and research experience that is designed to support their continued progress in obtaining STEM degrees. NSF funding supports the student stipend and living expenses, limited research expenses for each student and program administration.